Collaborative Research: Evolution of Early Proterozoic Continental Crust: Constraints from Xenoliths of the Navajo Volcanic Field

9418577 Selverstone This project will examine a diverse crustal xenolith suite from the Navajo volcanic field in the Four Corners area of the southwestern United States. The research will include field, petrographic, major and trace element, U/Pb zircon dating, and thermobarometric studies. Major objectives are to determine the spatial, depth, and age relationships among these xenoliths, and from these results, to better understand the origin and evolution of the crust in this region.